U.S.-India Collaborative Research in Wind Engineering

9634606 Scanlan Description: This award is for the continuation of a U.S.-India research collaboration in wind engineering between Robert Scanlan of Johns Hopkins University and Prem Krishna of the University of Roorkee. Experiments will be conducted at the Corrsin laminar flow wind tunnel at Hopkins and at the new boundary layer tunnel at Roorkee. The investigators will study the specific use and interpretation of bridge deck section models and building models in the respective wind tunnels. Theory developed at Hopkins on the use of flutter derivatives in determining wind stability will be used relative to section models at Roorkee and Hopkins. The research will investigate the detailed geometric forms needed to enhance stability in deck models. Scope: This award will allow travel between the research sites to complete the agreed upon level of effort. The funds requested for the entire research project are modest at about $30,000. This project will continue development of the flutter derivatives concept, considered a major advance in wind engineering, and extend abroad the influence of U.S. technology in aerodynamic design. For India, the project will contribute to developing modelling expertise, technical education, and improvements in design and construction methods. ***